Molecular Studies of Genetic Recombination in Xenopus

When DNA molecules are injected into Xenopus oocyte nuclei,they recombine with each other, provided certain conditions are met. These include requirements that the DNAs be linear and that sequence homologies be available to support the recombination events. This proposal suggests continuing studies of the mechanism of recombination in oocyte. First,the rules of oocyte recombination will be investigated by injection of modified and marked DNA substrates; some of these will be designed to test specific models of genetic recombination. Second, intermediates in the recombination process will be characterized by isolation of DNA at short times after injection and by use of specific inhibitors. Third, efforts will be made to develop a cell-free recombination system from the oocyte. This will allow characterization of individual steps in the recombination process and purification of components which catalyze them. The overall goal is to provide a mechanistic and biochemical description of recombination processes in oocytes. Recombination of DNA molecules resulting in chromosome exchange is a basic genetic process in most eukaryotic cells. While a few of the parameters in some cell types are known, much remains to be investigated. This investigation into the mechanics of DNA recombination in Xenopus oocyte nuclei should expand our knowledge of the critical factors in the recominbational process. Such knowledge is important for genetic engineering to progress.